Travel Support for Invited Goldschmidt Conference Symposia Contributors

Several years ago the council of the Geochemical Society conceived the plan to initiate joint meetings of major geochemical societies to foster cooperation between scientists, in particular to develop stronger ties with the European scientific community. The longer range goal is to hold meetings organized in alternate years by European and the United States- based societies. The very positive feedback from the participants of the first Goldschmidt Conference, which was organized by the Geochemical Society in 1988 to mark the Centennial Year of V.M. Goldschmidt's birth, encouraged the council of the Geochemical Society to proceed with organizing bianial Goldschmidt Conferences. The second conference will be held from May 2 to 4, 1990 in Baltimore, Maryland.